Acquisition of A Horizontal Bore, High Field NMR Spectrometer

A novel wide, horizontal bore, high field NMR spectrometer will be acquired. The new NMR will support research in the spatial details of metabolic locations and distribution, the molecular biology of plants, the organization of muscle tissue, the structure and function of nucleoproteins, and the molecular dynamics of proteins. New software will be written to allow 2D NMR techniques to be employed with a VAX as host for the NMR data.